High Performance Liquid Chromatography/Ion Exchange Chromatography at Taylor University

High performance liquid chromatography/ion chromatography instrumentation is being used in laboratory activities in organic chemistry, analytical chemistry, biochemistry, environmental chemistry, advanced laboratory and student directed research in the Chemistry Department at Taylor University. Concepts currently taught are reinforced by these experiences and the range and sophistication of applications is enhanced.